Workshop Proposal: The Petascale Computing and the Biosciences Workshop is Being Held on August 29-30, 2006 in Arlington, VA.

The University of California at San Diego is awarded funds to organize a workshop in Arlington, VA, from August 29-30, 2006 on Petascale computing in the Biosciences. The goal is to jumpstart collaborations between computer scientists and computational bioscientists thereby enabling efficient and early use of petascale computing resources as they come online. The workshop will promote meaningful information exchange between the two domains; it will be structured as a tutorial; bioscientists will describe their applications along with the computational challenges they present; computer scientists will describe their methods and tools for improving application performance and capability. There will be concrete actions identified out of the workshop, such as development of collaborative projects for algorithm and model development. These will be included in the workshop report. The objective is that investigators in both fields are better positioned to use emerging petascale high performance systems.